Constraints on Mantle Anisotropy from Shear-wave Splitting

9506502 FISCHER This research is to use S-wave splitting to constrain subduction zone anisotropy. Initial results indicate that in subduction zones with an oceanic upper plate and active back-arc spreading (Tonga, Izu-bonin and the Marianas), shear-wave splitting manifests a fast direction roughly parallel to the azimuth of convergence. In regions where the upper plate is quasi-continental (north-central Japan, the Kamchatka peninsula, and the eastern Aleutians) fast directions are roughly perpendicular to the direction of convergence. The focus of this work will be to better resolve the location, orientation and strength of subduction zone anisotropy. An existing three-dimensional finite-difference method will be modified for the calculation of synthetic seismograms in anisotropic media. This method will aid in distinguishing waveform perturbations due to anisotropy from those caused by other subduction zone structure. ***